PRF/J: Molecular Genetics of Wing Coloration Polymorphism in Heliconius Butterflies: Isolation, Characterization and Phylogenetic Analysis of Linked Nuclear DNA Regions

The evolution of wing pattern variation in Neotropical mimetic Heliconius butterflies (altogether 38 species in the genus) is an ideal system for investigating the roles of genetic drift and natural selection in the formation of geographical races. Years of studying this system have failed to reveal underlying mechanisms to which a stunning diversity of distinct allopatric forms may be attributed. By identifying RAPD molecular genetic markers that co- segregate with wing-pattern alleles in backcrossed broods, it will be possible to identify and sequence nuclear DNA fragments linked to pattern-altering alleles from multiple geographical races of a widespread species (Heliconius erato). A phylogenetic analysis of each pattern-related marker among different H. erato races will be compared to an independent phylogenetic hypothesis of intraspecific relationships from a mitochondrial gene, to determine if similar wing patterns in allopatric races have been maintained over time by selection, or have arisen multiply and independently from separate ancestors. %%% Results will enhance our understanding of the roles of alternate evolutionary forces in the production of a mimicry complex and provide a preliminary template for genomic map studies in Heliconius. This study will also illuminate the effects of selection on phenotype at the molecular level. The possibility of identifying genes that are functionally involved in pattern formation is an exciting one, for it has been hypothesized that the developmental pathway responsible for wing patterns is homologous in all butterflies (and possibly all Lepidoptera). If this is true, it would have far reaching implications for molecular developmental biology in general.